SBIR Phase I: A Novel Biomimetic Coating for Metallic Implants for Enhanced Osteoblast Response

This Small Business Innovation Research (SBIR) Phase I project is to evaluate the applicability of a novel surface modification of metallic implant materials, by coating them with polymeric film consisting of active biomolecules as the repeat units so as to biomimetically induce deposition of biological apatite and other osteogenic activities. The polymerizable monomer biomolecules will be synthesized, characterized and tested for apatite deposition from incubation in simulated body fluid, and for their effects on osteoblast differentiation, metabolism and growth.

The commercial application of this project will be in bone implants and prosthetic devices where metal to tissue interfaces must be integrated.